REU: Research Experiences in the Gulf of Mexico - Coastal Ocean Ecosystems

ABSTRACT: 93322456, PI-ROWE: This project is to initiate a REU SITE in Oceanography at Texas A & M University. The program will support 12 students/year for three years in a 10 week program. Students will work either on the Galveston or College Station campus. The unifying scientific theme for this project will be the structure and function of coastal ecosystems.